Electronic Properties of High Temperature Superconductors

The objective of this three-year U.S.-Yugoslav cooperative research project in condensed matter theory between Veljko Zlatic of the University of Zagreb's Institute of Physics and Philip Anderson of Princeton University is to investigate the electronic properties of high temperature superconductors and develop relevant theoretical models for high Tc metals. Yugoslav involvement will include both theoretical and experimental work. The investigators will continue their work on Dr. Anderson's model, begun under a prior grant, and construct other theoretical models emphasizing crystal structure and electron-phonon coupling. In their experiments, the Yugoslavs will characterize superconducting materials by measuring the thermodynamic, transport and spectroscopic properties of crystals. Zlatic's work on the properties of high Tc metals will complement Anderson's efforts to formulate a new high Tc superconducting theory applied to metallic systems with local Coulomb interactions. This project was approved by the U.S.-Yugoslavia Joint Board for Scientific and Technological Cooperation and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The award, except for funds for U.S. scientist travel, is made to the Yugoslav institution. NSF's goals of advancing scientific knowledge is promoted through the joint efforts and complementary expertise of the Yugoslav and U.S. scientists.